Modular Building Blocks for Non-Close Packed Organic Crystals

The focus of this research is the design and synthesis of nanosized units termed modules that can be pieced together by directed organization using specific, non-covalent bond associations. The modules contain functionality for directed organization and the rigid geometry needed to form covalently pre-assembled sections of the desired cavities and/or channels. Specific 1D, 2D and 3D target motifs can be realized by placement of appropriate functional groups on the modules. The approach could have a major impact on the synthesis of new functional organic materials. With this award, the Synthetic Organic Program is supporting the research of Dr. Jeffrey S. Moore, a young investigator from the Department of Chemistry at the University of Michigan, Ann Arbor. Professor Moore will focus his efforts on the rationale design and preparation of packed organic crystals possessing large internal cavities and/or channels. The resulting crystals will serve as a new family of "hosts" in the developing area of host-guest chemistry. The method, in the long run, could lead to the preparation of new organic materials and even tailor-made organic zeolites.